A Revision of Technical Physics

Henry Ford Community College is revising the curriculum of its introductory Technical Physics course, a class required for students in career education programs such as electrical /electronics technology, energy technology, industrial drafting, manufacturing engineering, and robotics. With approximately 200 students enrolled in PHYS 120 each year, the College has a significant population for its study.The revised course incorporates Workshop Physics, technological applications, and writing across the curriculum, and in the process is being aligned with the National Science Education Standards as articulated in the July '93 Progress Report (NCSESA 1993). Working closely with a steering committee comprised primarily of industry representatives, the HFCC project team is determining current technological applications that require physics that is included in the introductory course. Industry is also contributing to the design of the writing component of the technical physics course, providing samples of technical reports appropriate in the industrial context.